Small Scale Depositional Sequences in a Middle Devonian Foreland Basin

Many authors have stressed the significance of small-scale stratigraphic cycles and discontinuity bounded sequences in geochronology and in understanding depositional processes. As a result of extensive detailed studies of event stratigraphy of the Middle Devonian (Hamilton Group), we have recognized numerous small- and large-scale cyclic, bounded packages, some of which are widely traceable and appear to be allocyclic in nature. We also postulate that: 1) an upward-shallowing motif, at least in larger-scale cycles, is not pervasive, rather cycles are subsymmetrical near basin centers, but grade marginward into asymmetrical shallowing-upward sequences; 2) that the bounding surfaces of packages may record either sea level fall or rise, but 3) that they represent discontinuities of considerable magnitude; 4) depocenters of successive cyclic sequences display a regular westward migration that is consistent with current models of thrust loading in foreland basins. As a test of the generality of these patterns we will thoroughly document the sedimentology, taphonomy, paleontology and regional distribution of small-scale coarsening-upward sequences of the Hamilton Group in central New York State, and their correlatives in other areas. In particular, we will focus on a) correlation of bounded cycles across a shelf-to-basin profile; b) lateral symmetry changes within cycles; c) internal facies anatomy of small scale cyclic packages; and d) the nature and temporal scale of bounding surfaces. This research will lead to better understanding of relative sea-level fluctuations and depositional dynamics of a muddy foreland basin and could serve as a model for interpreting similar settings throughout the geologic record.